SciGirls Season 2

SciGirls is a multimedia project designed to encourage and empower more girls to pursue careers in STEM. It is a bold and unique experiment--the first television series on PBS designed specifically for girls aged 8-13. The approach is based on the findings of prior gender research. The television show and the Web site are integrally linked. Episodes are available for distribution on many of the newest digital platforms, e.g., Vimeo and iTunes for downloads, free of charge. SciGirls launched in February 2010 and reaches over 80% of the country. This project will support further research and development to advance SciGirls' online and outreach activities. Specifically, the deliverables include: (1) enhancement of the SciGirls website on pbs.org; (2) maintenance of the SciGirls Educator Networks and outreach to new partners; and (3) R&D on other media platforms.

The project's two strategic partners are the National Girls Collaborative Project (NGCP) in Seattle and The Franklin Institute in Philadelphia. The NGCP links SciGirls with its network of 500 community-based science programs for girls, and The Franklin Institute coordinates an affiliate network of science museums to implement SciGirls' outreach activities. The project will also work with the Girl Scouts of America's new "Girl Scout Leadership Experience" program, which emphasizes STEM learning. The most significant web component is a social networking feature that allows girls who are interested in science to connect with peers across the nation. To date, there have been over 300,000 unique visitors and 20,000 registered "SciGirls."